Mathematical Sciences: Problems In Differential Equations And General Relativity

The principal investigator plans to extend his recent results on the existence of nonsingular globally defined solutions of the Einstein/Yang-Mills field equations and to attempt to find asymptotically flat "black-hole" solutions whose existence would refute the so-called hair trigger conjecture. These problems impact upon both gravitational physics and relativity theory and have the potential of determining the role of geometry when gravity is modeled by Einstein's theory of relativity.